Odor Transduction in an Olfactory Epithelial Slice

Olfactory transduction is the physiological process of smell in which receptor cells transform their reception of an odorant into a nerve signal to send to the brain. The mechanisms involve modulation of ion-selective components of the membrane conductance in the olfactory receptor cell, to trigger excitation of a nerve impulse from the cell. Membrane properties often are studied in cells that have been dissociated and isolated in a dish, where they are easily accessible for physiological recording with micro- electrodes. This project uses a novel "slice" preparation of sensory epithelium, so that micro-electrode studies will allow characterization of the membrane properties of olfactory cells in a more normal environment, and determination of how the membrane conductances are modulated by odors. This preparation offers unique opportunities to study spatial interactions within the sensory epithelium, and the role of non-neuronal neighboring cells in modulating the neural response. Using patch-clamping techniques of electrophysiology, the chemosensory properties of two distinct morphological forms of olfactory cells are compared, along with the physiological properties of three classes of non-neuronal cell types in the epithelium. Results will have an impact on our understanding of how peripheral chemosensory function depends on the integrated activity within the receptor organ, as well as the properties of individual receptor cells. These results will be important to sensory neuroscience in general, in analyzing the capabilities for detecting, discriminating and encoding by a network system of neurons in a sheet of epithelium.